Ulam Centennial and Spring Topology and Dynamical Systems Conference 2009; Gainesville, FL, March 2009

Abstract

Award: DMS-0844136
Principal Investigator: Philip L. Boyland, Louis S. Block,
Alexander N. Dranishnikov, James E. Keesling

The University of Florida Department of Mathematics will host a
joint Ulam Centennial and 43rd Annual Spring Topology and
Dynamical Systems Conference (Ulam Centennial STDC-2009) from
Saturday, March 7 through Thursday, March 12, 2009. The Annual
Spring STDC's are among the nation's most successful series of
topology/dynamics conferences. Stanislaw Ulam would turn 100 in
Spring, 2009. He was one of the preeminent mathematical
scientists of the 20th century and a Graduate Research Professor
at the University of Florida. In light of Ulam's many
contributions to topology, dynamics, and related fields, it is
very fitting that the annual STDC be combined with an Ulam
Centennial. The joint conference will maintain the basic
structure and sessions of the STDC, but will be extended by 3
days to allow additional special sessions and plenary lectures in
the areas of Ulam's many contributions to mathematics and
science.

Topology studies generalized notions of spatial structure;
Dynamical Systems studies the topological and analytic nature of
time evolution. Each is a fundamental part of modern mathematics
and has applications as far ranging as robotics, fluid mixing,
computer networks and cardiac rhythms. Conferences are
fundamental to the strength and development of mathematics, and
as such are a fundamental part of the national scientific
infrastructure. This conference will combine the latest results
in Topology and Dynamical Systems with many applied topics
associated with Stan Ulam. While Ulam is perhaps best remembered
by the public for his participation in the Manhattan Project, his
mathematical and scientific contributions were wide and
deep. They include significant work in numerical methods,
classical mechanics, dynamical systems, number theory, graph
theory, set theory, and ergodic theory. Inspired by Ulam's
example, the conference will advance top quality research in
Topology and Dynamical Systems while facilitating broad and deep
interaction among adjacent mathematical research areas and
between abstract and applied research.